Study of Lake and Land Breezes Over Small Lakes

9319455 Arritt Small lakes are commonplace geographical features. The atmospheric effects of lakes are important to many practical problems such as water resources, air pollution dispersion and modification of the local microclimate. There is also evidence that small lakes can substantially affect the development of daytime convective clouds. In some cased the lake breeze induced convergence provides a trigger for deep convection while in other cases small lakes have been observed to suppress convective cloudiness. Such effects have implications for feedbacks to the larger scale weather environment. The objective of this research is to develop a comprehensive physical understanding of the atmospheric effects of small lakes. Specifically, the Principal Investigators will study the magnitude of the small lake effects on the atmosphere, the temporal and spatial extent of such effects, and the fundamental physical processes that produce the measured effects. The Principal Investigators will use a combination of analytical scaling, numerical simulations and a small, well-focussed observational study to accomplish their objective. ***